Neutron Star Dynamics

9417296 Ogelman The observations of radio pulsars and accreting neutron stars yield information on the dynamics and structure of neutron stars. The aim of this proposal is to learn about neutron star structure from observations pertaining to neutron star dynamics. A dynamical model for radio pulsar glitches, developed by the PI and collaborators, will be used for fitting the glitches and postglitch timing data. An evolutionary picture, with young and older pulsars exhibiting different glitch behavior, will be explored, along with a statistical study of the distribution of glitch sizes and interglitch intervals. The radiation of the energy dissipated by internal torgues will be searched for in X-ray observations of radio pulsars. A comparative study of luminosity power spectra from different types of accreting neutron stars as well as timing noise from accretion powered pulsars will be attempted. ***